Computer Science, Engineering and Mathematics Scholarship Program

This project provides comprehensive support to complement a scholarship program for low income undergraduates completing their baccalaureate degrees in engineering, computer science, and mathematics. A constellation of support services are provided through existing programs at the University including: recruitment and outreach, tutoring, mentoring, advisement, career planning and exploration opportunities, research and internship placements, summer enrichment and work- experience programs, study abroad and cooperative education opportunities, work preparedness, and job placement. The program interfaces with a large number of campus organizations and programs. The program integrates with successful existing programs at the University and comprises the following components: Implementing recruitment, outreach, selection, and monitoring strategies with particular attention directed at underrepresented minorities, women, and students with disabilities. Developing a network of CSEMS scholars and of support services including tutoring, mentoring, small group academic focus sessions, and advisement to ensure student retention and success. Providing career planning, practical experience, and career exploration opportunities through research and internship placements, study abroad, and cooperative education opportunities. Developing a monitoring and evaluation process to ensure program success and degree completion of scholarship recipients.